Acquisition of an X-Ray Diffractometer with CCD Detector for Small Molecule Diffractometry

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Kansas will acquire a X-ray diffractometer with CCD detector for small molecule diffractometry. This equipment will enhance research in a number of areas including the following: a) structural elucidation of anion coordination chemistry; b) elucidation of the effects of non-covalent interactions on metal ion reactivity; c) probing structure-function ramifications of tetrazamacrocyclic metal complexes in catalytic oxidation reduction reactions; d) examination of the influence of peptide porphyrin interactions on helix stability and on electron transfer; ;e) elucidation of structural influences on asymmetric metathesis catalysts; and f) studies of the growth mechanism for mercury-based high temperature superconductors.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in a number of areas, including the preparation of more efficient catalysts, chemical sensors, high temperature superconductors; and biochemistry.